US-Poland Research on Stochastic Models of Relaxation Phenomena in Polymers and Dielectrics

This U.S.-Poland Research project between Drs. Wojbor A. Woyczynski and Robert Simha of the Center of Stochastic and Chaotic Processes in Science & Technology and the Departments of Mathematics and Statistics and Macromolecular Science at Case Western Reserve, and Professors Alexsander E. Weron, K. Weron, and A. Janicki of the H. Steinhaus Center for Stochastic Processes in Science & Technology, Wroclaw Technical University, is on "Stochastic Models of Relaxation Phenomena in Polymers and Dielectrics." The researchers will pursue four lines of research: (1) Probabilistic methods in the statistical mechanics of systems occurring in surface chemistry; (2) Random graph and statistical mechanical models of polymerization; (3) Foundational problems related to the theory of stochastic integration; and (4) Roughness of surfaces (a topic which keeps cropping up in a huge variety of scientific problems from surface chemistry and the theory of liquid crystals, to analysis of oceanic flows over bottoms with rough topography). This project in mathematics and statistics fulfills the program objective of advancing scientific knowledge by enabling leading experts in Poland and the United States to combine complementary talents and pool resources in areas of strong mutual interest and competence.